Steve Burges Retirement Symposium: : Hydrology in the 21st Century; Links to the Past, and a Vision for the Future

This Conference is to present ongoing research, to identify how it is linked with the past and ongoing evolution of the field, and to articulate how current work is addressing the challenges of decades to come. The topic and the scope of this public meeting parallels the information collection phase of the ongoing NAS/NRC Committee on Hydrologic Sciences study on “Opportunities and Challenges in the Hydrologic Sciences” and represents an additional positive aspect.